Solar Irradiance Variation under RISE

The PI will build on previous work improving the understanding of the role of photospheric magnetic activity in determining solar irradiance variation. The main objectives are: (1) improving empirical models of variations in total irradiance using the digital, full-disc CaK images produced from the Mount Wilson daily spectroheliograms obtained between 1915 and 1985; (2) using these digital CaK data to produce the first empirical models of long-term solar spectral irradiance variations in the ultraviolet and extreme ultraviolet, extending back to 1915; (3) extending digitization of the Mount Wilson data to include plates of different format obtained between 1905 and 1915; and (4) extending previous study of the behavior of plages and spots at times of highest solar activity.